CRCD: From Sequence to Expression and Structure: An Innovative Research-Oriented Course

0203396
Marek Kimmel
William Marsh Rice University
"Bioinformatics: From Sequence to Expression and Structure. An Inovative Research-Oriented Course"

The primary goal of this project is to teach advanced students how to investigate cutting-edge problems in computational biology. The project involves developing and disseminating an innovative course based directly upon leading multidisciplinary research. Graduates who know how to identify and work on solving leading research problems gain the significant benefit of being able to apply bio-informatics to a broad range of problems. In addition to being immersed in a burgeoning research sector, graduates of this program, who have free access to the newest knowledge and skills in the field as it evolves, may enjoy a competitive advantage in the workforce. To produce students capable of leading independent research, the project focuses on three educational outcomes: 1. Students develop meta-cognitive knowledge of scientific and mathematical problem solving in this field, 2. They acquire an integrated knowledge base of leading bio-informatics models and research methods for genomic and post-genomic research, and finally, 3. Students improve at working both as individuals and in multidisciplinary teams. To reach these objectives, the project presents a course in bio-informatics, on a senior undergraduate or graduate level, which integrates cutting-edge research-related content with novel and unique means of teaching, evaluation and dissemination. The long-term goal of the course is related to prospective professional careers of students. The cutting-edge bio-informatics research in industry and academia already is shifting from the DNA sequence level to exploration of gene expression and interaction and bio-molecular interactions. Students enrolled in the proposed course will develop a high level understanding of bio-informatics research and computational biology.